CT-ISG: A Comprehensive Data Carving Architecture for Digital Forensics

Golden Richard
University of New Orleans
0627226
Panel: P060969
A Comprehensive Data Carving Architecture for Digital Forensics

One of the most important software techniques in digital forensics is
file carving, which uses a database of characteristics about commonly
encountered file types to search physical disks for files of these
types. File carving is a particularly powerful technique because files
can be retrieved from raw disk images, regardless of the type of
filesystem, even if file metadata has been destroyed. File carving can
find data associated with deleted files, in slack space, swap files, and
data "hidden" outside the filesystem. The goal is to identify the
starting and ending locations of files in the disk images and "carve"
(copy) sequences of bytes into regular files so their value as evidence
can be measured.

Currently, the scope of file carving is narrow and there are significant
limitations. Patterns for new file types are typically created
manually, which is a tedious and error-prone process.
Current-generation tools generate many false positives, carving files
whose formats are incorrect. This wastes the time of investigators, who
already have overwhelming caseloads. In addition, carving has not been
applied extensively to volatile media such as memory and network flows.
RAM carving is useful for low-level detection of installed malware,
where high level detection (e.g., via OS facilities) might be thwarted
by the malware. Network data flow carving can help investigators
determine whether specific documents were transmitted or whether
versions of specific documents were transmitted. This research explores
techniques for better automatic identification of documents, by
expanding on the header/milestone/footer search generally employed in
current generation tools. The research also expands the scope of data
carving to include memory analysis and network flow analysis. The
entire architecture is be incorporated into the distributed digital
forensics framework created by the PI and his collaborators at the
University of New Orleans.